UNIDATA: Enhancement of Undergraduate Meteorology Education Through UNIDATA's OS/2 and UNIX-based Workstations

Project objectives are to enhance student visualization of complex meteorological principles, introduce students to the principles of numerical weather prediction and computer models, participate fully in the Unidata project and facilitate faculty and student research using high speed computer platforms. These objective will be met using Unidata's OS/2-based McIDAS and UNIX- based Scientific Data Management (SDM) systems. Funds are provided to a UNIX-based workstation capable of running Unidata's SDM system. This requisition will significantly enhance the processing of the Domestic Data Plus circuit. Processing of the McIDAS data stream at Lyndon will be upgraded by the acquisition of two PC computers, augmenting a network of 4 previously acquired IBM PS/2s (1987 NSF Grant CSI-8750236) which are marginally configured to process the data stream. Simultaneous windowed displays of radar and conventional data using the WXP program in the SDM and McIDAS displays of satellite imagery and gridded fields will speed computers, present interactive computer programs and models can be run on time frames compatible with individual class sessions. Numerical prediction methods can be demonstrated to upper level students. The faster computers and new data will foster future student and faculty research projects while enhancing current ones.